PECASE: Topics in Number Theory

This award funds programs for research and education with special
emphasis in combinatorics and number theory. The investigator
plans to study the combinatorics of partition functions, the
structure of elliptic curves, the Fourier coefficients
of modular forms, and special values of automorphic L-functions.
The investigator hopes to shed further light on the behavior
of Mordell-Weil groups of elliptic curves, class groups of number
fields, and Selmer groups. In addition to his research, the investigator
proposes a number of broadly based activities which constitute
an ambitious and sustained effort for the promotion of
education at all levels.
This includes the mentoring of talented high school students locally
within the State College School District, and nationally in the
form of an annual workshop run in collaboration with the
National Youth Science Foundation. Moreover, the investigator
intends to enhance opportunities for graduate students
and postdoctoral fellows working in combinatorics and number theory
at Penn State.

The National Science Foundation strongly encourages the early development
of academic faculty as both educators and researchers. The Faculty Early
Career Development (CAREER) Program is a Foundation-wide program that
provides for the support of junior faculty within the context of their
overall career development. It combines in a single program the support of
quality research and education in the broadest sense and the full participation
of those traditionally underrepresented in sciences and engineering. This
program enhances and emphasizes the importance the Foundation places
on the development of full, balanced academic careers.